Interaction of Regional Climate Modes: A Global Hypermode?

Abstract
ATM-9901110
Barnett, Tim
University of California, San Diego
Title: Interaction of Regional Climate Modes: A Global Hypermode?

The proposed work aims to test the idea that there are one or more global 'hypermodes' of climate variability composed of mutually interacting regional climate features or 'modes'. A coherent physical framework that can explain the observed decadal variation in regional climate, is sought in terms of the interactions between climate changes in other parts of the globe. The challenge is to describe the statistical relationships that exist between well known regional climate features (the Monsoon, ENSO, North Pacific Oscillation) and physical processes that govern these interactions. The nonstationary character of the statistical relations or interdecadal modulation makes this difficult. A set of long global climate model simulations from three different models, with/without full ocean physics, will serve as the basic data source for the study. The main thrust of this work is that for reliable climate prediction, regional climate changes need to be understood in a global context. The work is important because it will yield an enhanced understanding of the processes contributing to climate variability.